NSF Scholar Program for Computer Science, Computer Information Systems, Computer Systems Engineering and Mathematics

The University of Houston-Clear Lake's S-STEM project is awarding scholarships to students pursuing Computer Science, Computer Information Systems, Computer Systems Engineering and Mathematics who demonstrate both academic potential and financial need. Special emphasis is being given to recruiting from under-represented groups. Scholars are participating in mentoring meetings, creating web blogs, and in career placement opportunities sponsored by industrial partners. The project is making an impact in the quality, and type, of student support structures available for recruitment, retention and career placement. This proposal centers on a unique two-year only upper division undergraduate accredited CS program.